NSF Young Investigator

9357219 Laguna This NYI award will support the research of a promising and accomplished young investigator. His research will include numerical studies in several aspects of gravitational physics, including modelling of various interactions of black holes. ***